Problems in Flame-Flow Interactions

The influence of various hydrodynamic effects on the speed, shape, stability, and extinction limits of premixed flames will be investigated. Asymptotic, perturbation, and spectral methods will be employed to reduce the flame-flow interaction problems, which are governed by nonlinear two- and three- dimensional partial differential equations, to simple approximate problems tractable analytically or numerically. The dynamics of premixed flames propagating through single and multi-scale systems of eddies and the associated cascade renormalization concept of turbulent flame speed will be emphasized. The influence of rotation on counterflow premixed flames will also be studied, with the analysis compared to recent experimental observations. The rapid development of computational facilities is making it possible to apply sophisticated mathematical analysis to more complex, and realistic, combustion problems. The theoretical research being performed with this grant will tackle highly relevant problems associated with the propagation of stretched and turbulent flames.